Excluded Volume and Electrostatic Interactions in Liquid Crystals

9971143
Samulski
This project will characterize and quantifiy intermolecular forces in liquid crystals through carefully constructed experiments and associated modeling of the experimental findings. The aim is to simply and realistically describe the orientational and conformational biases operative in mesophases so that molecular architectures can be tailored to amplify desireable properties. Experiments are designed to separate orientational ordering into its primary components - steric and electrostatic interactions - to enable the prediction of properties of liquid crystals. Nuclear magnetic resonance will be used to study solute-liquid crystal solvent pairs; the synthesis and evaluation of new liquid structures based on heterocyclic thiophene and oxadiazole rings will be delineated to highlight the role of electrostatic interactions in nonlinear "banana-" or "boomerang-shaped" mesogens. New electro-optic properties may be exhibited by smectic phases of these materials, and the new liquid crystals may be used to test the "indigenous polarity" model of the origins of spontaneous polarization in ferroelectric liquid crystals.
%%%
Understanding the properties of new classes of liquid crystals in terms of their molecular structural features will enable the rational design of new maesogens that can be optimized for specific applications such as high contrast ratios, rapid switching, and high spontaneous polarization useful for improving a range of devices that include flat-panel displays.